CAREER: Towards an Analytical Perspective for Continuous Optimization Methods

The central theme of this research plan is to formally study
numerical issues concerning algorithms for continuous
optimization. A primary goal is to address central topics in
numerical analysis - such as perturbation theory,
conditioning, and sparsity - in the continuous optimization
context. A second objective is to gain further insight into
interior point methods for convex programming. Special
attention will be paid to numerical aspects such as the
solution of the linear equations arising at each main
iteration and the effects of limited precision in arithmetic
computations. Properties of the central path and local
convergence results will be studied. Applications of the
analytical perspective for convex optimization in
probability and discrete optimization will be explored. The
educational plan involves activities both at the master and
doctoral levels. At the master level, further development of
courses in quantitative methods and applications of
operations research will be pursued. Special emphasis will
be placed on the role of mathematical models in a variety of
industrial applications. At the doctoral level, exposure to
interior point methods, semidefinite programming, and real
model computation will be provided through the graduate
nonlinear programming course, seminars, and reading courses.